FT-NMR

The Department of Chemistry is purchasing a Varian GEMINI 2000 High-Resolution NMR System to support its instruction laboratories and enhance its senior research programs. Introduction of NMR concepts with hands-on access to modern NMR spectroscopic techniques early in a students chemical education increase interest and excitement in the field of chemistry. Students must have instruction in FT-NMR to meet the demanding requirements of the academic and industrial world.